Preparing Lead Teachers in Statistics and Probability

In the environment where the state has mandated that statistics will be taught in the schools of Ohio and has granted monies to Xavier University to educate teachers who have a weak background in statistics this project has developed a workshop for lead teachers dealing with content and pedagogical questions related to the teaching and learnig of probability and statistics. The lead teachers also receive instruction on how to work with other teachers in the state and thereby are able to extend the ideas of the workshop to other teachers in the state. This will enable the ideas of the workshop to reach a much larger teacher audience and to develop a regional network of educators related to teaching of statistics. The workshop will be geared to 48 lead teachers who will in turn work with the remainder of the 105 teachers in the area who are required to teach statistics.